Molecular Genetics of Arabidopsis Titan Mutants

0091754
Meinke

The titan (ttn) mutants of Arabidopsis exhibit dramatic alterations in
mitosis and cell cycle control during seed development. The common
feature among these mutants is that endosperm nuclei become enlarged and
highly polyploid. Mutant embryos differ in cell size, morphology, and
viability, depending on the locus involved. Three titan mutants with
distinct phenotypes were first identified in the Meinke laboratory 4 years
ago. During the previous grant period, 10 additional titan mutants were
recovered and 5 TITAN genes cloned in collaboration with Novartis
(Syngenta). Several of these genes encode condensin (SMC) proteins
required for chromosome condensation and dosage compensation. Another
gene product is related to the ARF class of GTP binding proteins
associated with vesicle trafficking. The remaining genes are involved
with other cellular processes. What remains to be determined is how these
diverse proteins interact to influence nuclear division and cell viability
during seed development.

This project will make it possible to continue the analysis of titan
mutants and determine the relationship between gene function, nuclear
dynamics, and cell growth during seed development. Emphasis will be
placed on the SMC class of titans because these proteins appear to be most
directly linked to the mutant phenotype. Project objectives are to
identify the remaining SMC gene knockouts through reverse genetics,
characterize nuclear and cytoskeletal defects in more detail through
fluorescence and electron microscopy, analyze phenotypes of multiple SMC
knockouts, and determine how SMC functions in plants compare with those
established in other organisms. The ARF class of titans will be examined
first by attempting to complement ttn1 with an ARF-GAP that maps to the
TTN1 region. This should complete a map-based cloning effort initiated
during the last grant period. The other class of titans will be examined
in part by analyzing more tagged endosperm mutants from the Novartis
collection, including those that have intermediate titan phenotypes.
These additional mutants will be compared with existing titans to
establish the complex network of genes that influence endosperm
development.

The titan phenotype demonstrates that Arabidopsis endosperm tissue
provides an ideal environment for proliferation of aberrant nuclei
defective in mitosis and cell cycle control. Detailed analysis of these
mutants should provide valuable insights into novel features of nuclear
dynamics during endosperm development and evolution. The long-term goal
is to understand the complex mechanisms that regulate endosperm formation
in angiosperms.